Trace Element and Strontium Isotopic Compositions of Secondary Minerals from Ocean Crust Hydrothermal Reaction Zones: Controls on the Composition of Black Smoker Fluids

Circulation of seawater through the ocean crust has a major effect on the chemistry of seawater. The composition of the water that exits from hot springs could tell us what processes occur in the ocean crust to form the water. Some processes have been proposed that result in the observed rare earth element, alkali element, calcium, and strontium isotope composition of the exit waters. The hypotheses about potential subsurface reactions can be tested by analyzing the major minerals and their alteration products for trace elements and strontium isotopes. These investigators have new analytical techniques that will allow them to determine trace elements in minerals from rocks recovered from below the sea floor and test the hypotheses.